Collaborative Research: Biological and mineralogical controls over soil carbon cycling across multiple ecosystems: a focus on the priming effect

Carbon dioxide (CO2) is released to the atmosphere when humans burn oil, coal, and gasoline, and is the major cause of global warming. Soils can store carbon (C), helping counteract rising carbon dioxide, but the future of the soil C sink is uncertain. Will it be converted to soil organic C, which can stay put for thousands of years, or will soil microorganisms convert it back to CO2, returning it to the atmosphere? This is a major uncertainty about the future C sink on land. Recent work suggests a surprising response, called the priming effect, in which adding C to soil boosts the metabolism of microorganisms, causing them to produce even more CO2 than expected. Yet, this phenomenon is variable and very poorly understood. Proposed mechanisms fail to explain what conditions modulate the occurrence and magnitude of the priming response. Preliminary data suggest that the soil mineral assemblage, reflecting the chemical and geological properties of soil, interacts strongly with the soil microbial community to influence the priming effect. This research will test the idea that the priming response depends on interactions between the soil mineral assemblage and the soil microbial community. Thus, this research lies at the interface among geology, biology, and chemistry. The research will investigate priming responses in nine soils, spanning a broad range of climatic and environmental conditions. Laboratory experiments will evaluate how priming responds to variation in the mineral assemblage, and samples from the experiments will be tested for carbon cycling and microbial community characteristics. The work will use state-of-the-art techniques, including in-line isotope-ratio measurements using a cavity ring-down instrument, and new stable isotope probing techniques paired with gene microarrays capable of identifying microorganisms performing specific ecological functions. This project emphasizes integrating research and teaching, will provide interdisciplinary training for undergraduate students at institutions with strong histories of minority enrollment. Students will gain experience with the cutting-edge methods, and with a research field with strong implications for policy decisions surrounding global climate change and carbon management.